Adaptive Finite Element Methods with Error Control for Nonlinear PDE

The adequate numerical treatment of nonlinear phenomena governed
by partial differential
equations with several
disparate scales is a formidable computational challenge. Modern
algorithms should be able to resolve fine scales for certain physical
quantities without overresolving others, thereby optimizing the
computational effort and making realistic 3d simulations feasible.
Phase transitions in materials science, epitaxial growth,
viscous incompressible fluids, and chemotaxis
are typical yet quite distinct examples.
The goal of this project is to design, test, and
analyze reliable and efficient adaptive finite element methods
for such problems, with
space-time error control and based on
refinement/coarsening mesh modification.
This project builds
upon our novel theory for a posteriori
error estimation of evolution problems; in fact it extends and
enhances the prior NSF Grant
DMS-9623394. It blends quite delicate analytical and computational
issues, and applies them to free boundary problems, constrained
problems, and advection-diffusion equations.

This project has strong connections with areas of strategic interest
such as Materials Science, Micro Electronics and High-Performance
Computing, in that it addresses central issues to all of them
such as the development of reliable and
efficient algorithms.
This is a collaborative project involving a number of scientists
in the US and abroad, as well as several students.
A substantial effort is devoted to education
and human resource development.